U.S. Panel on Wind and Seismic Effects

This award provides partial support for the U.S. Panel on Wind and Seismic Effects. The Panel was created in 1968. Annual meetings alternate between Japan and the U.S. The Panel develops technologies that advance engineering design and construction practices and improve the quality-of-life. The Panel is composed of 16 Federal agencies who participate in nine task committees. The task committees focus on specific national issues, e.g., earthquake hazards reduction, buried pipelines, transportation and telecommunication systems, repair and retrofit of structures. The results of task committee workshops and conferences are shared at the annual joint meeting and usually published as proceedings.